Shipboard Scientific Support Equipment: Oceanographic Cable

9420832 MOLLER The University-National Laboratory System (UNOLS) fleet of research vessels, operated by academic institutions, provides support services to those NSF sponsored researchers who require time at sea to complete their investigations. All of these ships use oceanographic cable as part of this research support. Arrangements have been made which allow bulk purchases of wire rope resulting in considerable cost savings. Sisteen reels of cable will be purchased. The cable is stored until needed at the Woods Hole Oceanographic Institution (WHOI) on the east coast and at the Scripps Institution of Oceanography on the west coast. Mr. Donald A. Moller, Marine Operations Coordinator, WHOI, will manage this project. ***